Application of 15N Tracer Methodology and Flow Cytometry to the Study of Nitrogen Metabolism of Marine Phytoplankton

This award supports a two year continuing grant for Dr. Wofsy and his co-investigator Dr. Lipschultz to begin work on nitrogen uptake by various subpopulations of marine particulate material. Previous measurements of nitrogen uptake by marine microbes has been done on bulk samples and this method has grouped the activity of many contributing subpopulations. The present investigators will separate the particulate populations using a cell sorter and analyze these small samples using newly developed modifications to emission band spectroscopy. This work will produce our first quantitative analysis of the influence of detrital material on nitrogen rate measurements that are thought to limit the biological productivity of much of the world ocean.